Space Weather Technology Transfer: A Community-Building Publication

This project will aid in the publication and distribution of a journal devoted to research on space weather and the transition of research results to practical applications. The journal, Space Weather: The International Journal of Research and Applications, is published by the American Geophysical Union (AGU) and is designed to foster the transfer of space weather research to applications. It will enhance the communication between researchers, forecasters, and users of space weather data.